REU Site: Center for Scalable and Integrated Nanomanufacturing (SINAM) Nanomanufacturing Summer Academy (NMSA)

This proposed three year REU Site program at the University of California Los Angeles (UCLA) will support undergraduate research within the Center for Scalable and Integrated Nanomanufacturing (SINAM) an NSF Nanoscale Science and Engineering Center that spans six campuses. This REU project will support undergraduate research at three of those campuses: UCLA, UC Berkeley, and Northwestern University. The summer undergraduate research program within SINAM, the "Nanomanufacturing Summer Academy" (NMSA) has been in existence since 2004. The objectives of the NMSA program are to: 1) introduce students to current nanomanufacturing research; 2) to provide students with a structured and supportive research experience by working in a laboratory with faculty and graduate students; 3) to encourage students to pursue advanced degrees in engineering; and 4) to prepare students for research in graduate school.

The intellectual focus of each research project being conducted within NMSA will be manufacturing. The current nano-technology revolution is facing several major challenges: to manufacture nanodevices below 20nm, to fabricate 3D complex nanostructures, and to heterogeneously integrate multiple functionalities. To tackle these grand challenges, SINAM proposes a nanomanufacturing paradigm that integrates an array of new nanomanufacturing technologies: the development of nanomanufacturing tools that are suitable for industrial-scale applications; utilization of the new technological platforms for the manipulation and construction of high dimensional nanostructures to build a plasmonic-based healthcare platform; and nanomanufacturing of 2nd and 3rd generation solar cells including solid-state thin-film and electrochemical solar cells. Undergraduate students will be engaged in these exciting and critical research areas within SINAM.

In addition to focusing on their own research projects, participants will be provided with broader educational experiences. Students will be exposed to the breadth of SINAM research through weekly seminars given by graduate students and faculty, which will be webcast to all campuses. NMSA has also formed partnerships with the following organizations to coordinate educational and social programs for NMSA participants at the institution they are assigned: 1) At UCLA, the UCLA Undergraduate Research Center, Center for Academic and Research Excellence (URC-CARE), 2) At UC Berkeley, Summer Undergraduate Program in Engineering Research at Berkeley (SUPERB), 3) At Northwestern, Summer Research Opportunity Program (SROP). The educational programs that are offered include GRE preparation courses, abstract writing and research presentation workshops. The social activities allow students an opportunity to network and build relationships with other summer research participants from various disciplines.

The culminating activity of the research program will be a poster presentation. All NMSA participants will have their posters displayed on the SINAM website to share their work with students across all SINAM campuses.

Participants in this REU Site program will be encouraged to pursue advanced degrees in engineering and prepared for research in graduate school. Upon completion of the Nanomanufacturing Summer Academy, students will have a clear understanding of what is necessary to success in engineering research at the graduate level. Students will learn how to communicate and interact with their faculty mentor, graduate student mentor, and lab associates. Finally, the students will leave the academy with a greater understanding of nanomanufacturing and its real world application.